Descriptive Set Theory

DMS-998-7437
ABSTRACT

This general aim of this project is the development of the theory of
definable equivalence relations, and the closely related study of definable
actions of Polish groups, and the structure and classification of their
orbit spaces. This theory takes place within the context of descriptive set
theory, which provides the basic underlying concepts and methods. On the
other hand, in view of the broad scope of this theory, there are natural
interactions with other areas of logic and mathematics, such as model
theory, recursion theory, the theory of topological and transformation
groups, topological dynamics, ergodic theory, and operator algebras.

One of the fundamental questions that arises in many areas of mathematics is
that of classifying a given collection of objects that is being studied in
some particular field. This amounts to providing a "catalog" or "listing" of
these objects, in principle not unlike that of cataloging species in biology
or stars and galaxies in astronomy. If such a classification is possible,
one has a "complete" understanding of the mathematical structures involved.
Otherwise a more or less "chaotic" behavior is expected. It is thus very
important to understand under what circumstances a classification is
possible. This difficult foundational question is further complicated by the
fact that what constitutes an acceptable classification is very much
dependent on the particular field of mathematics studied, so the criteria
for a "good" classification in one area might not be appropriate in another.
At its basic level, this project aims to develop a general quantitative
theory, which in many situations can precisely measure the complexity of a
classification problem and thus provide objective means by which one can
decide, in any given field, whether a satisfactory classification of the
objects in question is possible. This is achieved by associating with each
collection of objects to be classified an appropriate concept of "magnitude"
or "size", which in a precise sense measures the difficulty of its
classification problem. This new theory of "magnitude" is investigated in
this project.